CRII: CHS, SCH: Monitoring Heat Stress Through Environmental Sensing

Heat waves are responsible for more deaths each year than all other natural disasters
combined. In urban areas, extreme heat events are intensified by the Urban Heat Island effect,
which results in even more extreme microclimates due to the physical layouts of cities, the use
of certain building materials, and a reduction in natural landscapes. In this project, the
investigator will identify landscape design recommendations to mitigate extreme heat hazards
in urban microclimates. Body-worn and ambient sensors will be used to understand urban heat
wave patterns and the influences that heat and humidity have on physiological functions such
as the core body temperature of individuals utilizing outdoor urban areas. A wearable and
ambient sensor network will be extended and field-tested in Bloomington, Indiana. Geographic
information systems will be used to classify urban areas within Bloomington
into microclimates in order to ascertain exposure levels of heat and humidity hazards to
residents. A real-time monitoring system for microclimates during heat extremes will be
developed using participatory design with stakeholders such as city planners, public health
officials, green infrastructure experts, and citizens. Results will include a new understanding of
the effects of extreme heat events on human health and wellbeing and will provide methods to
mitigate heat hazards through more effective use of information technology and urban green
infrastructure.

Urban heat extremes result in the highest number of fatalities across all types of natural
disasters each year. The design of cities and urban areas contributes to the intensity of heat
events through the Urban Heat Island effect. The investigator aims to use wearable sensors and
embedded environmental sensors to better understand effects of extreme heat microclimates
on human health. The method includes an extension of an existing person-environment sensor
network to collect human physiological data and ambient temperature variances in
microclimates. Current data and software tools will be used to explore, classify and integrate data to determine
relationships between microclimate heat events throughout the city, interactions with humidity
and wind speed variations, and human physiological responses, such as core body temperature.
Through participatory design, prototype visualizations of real-time climactic changes in
microclimates will be developed. This research will contribute to collaborative efforts among
stakeholders to minimize risks to human health and design green infrastructure to mitigate the
harmful effects of extreme heat events.